US-Argentina Cooperative Research on Studies on the Mechanism of Action of Aldosterone in Brain

This award supports cooperative research in neuroendocrinology between Dr. Bruce McEwen of the Rockefeller University and Dr. Alexandro De Nicola at the Institute of Biology and Experimental Medicine in Buenos Aires, Argentina. This work will identify the characteristics of and the degree of overlap between two receptor systems for steroid hormones in the brain. Understanding the communication between steroidal receptors is important to interpreting interactions between other neurotransmitters and receptors. The use of new molecular biological methodology will lead to new advances in brain neuroscience. The principal investigators have a history of previous successful collaboration and a former student of Dr. De Nicola, Dr. Coirini, is now a post-doc in Dr. McEwen's laboratory. Both laboratories are well equipped for their part of the research and therefore significant contributions can be made by both sides in investigating the regulation of mineralocorticoid receptors by glucocorticoids and the regulation of glucocorticoid receptors by mineralocorticoids. Also, the levels of these hormones and how the binding activity is affected by the regulation will be determined. This work will continue a productive four-year collaboration.